Collaborative Research: Culture, Psychological Distance and Modes of Moral Decision Making

Common approaches to resource and political conflicts often assume adversaries understand the world on the basis of rational choices. Given this assumption, one can predict the behavior of potential allies and adversaries by analyzing the costs and benefits of a given action from their perspective. In prior research involving psychological experiments, anthropological fieldwork and political science surveys relating to political and resource conflicts, the PIs have found that that when sacred or protected values (e.g.
"My values are not for sale"; "Do the right thing regardless of the consequences") are in play, the assumption that the values people place on different actions is simply the sum of the values of their consequences may be wrong. As a result, the practice of providing incentives to increase the attractiveness of certain courses of action and/or penalties to make other courses of action less attractive to try and achieve a desired outcome in a conflict may backfire. Planning and acting in ignorance of or disregard for non-consequentialist value frameworks may exacerbate conflict, with grievous loss of treasure and lives.

In the proposed research, the PIs examine how different moral frames, with different types and uses of sacred values, shape personal and collective identity, influence cultural and political decision making, and sustain inter-group conflict. The studies will broaden theoretical and empirical analyses of moral cognition, including how protected or sacred values (SVs) affect people's lives and play out in diverse cultural contexts. SVs are distinct from secular values because of their association with transcendental beliefs, relative immunity to tradeoffs with instrumental values, emotional salience, and significance for personal and collective identity. The project will examine how SVs operate in real-world contexts, identifying those circumstances where they result in decision makers ignoring material consequences and distance in time or place and produce paradoxical results as well as those where they produce outcomes that track those that follow from the consequentialist assumption. The methodology integrates basic and applied research, combining laboratory and field experiments, surveys and interviews in a number of different cultural settings (North America, the Middle East, and India) in order to provide "real-world" relevance.

The results will contribute to a comprehensive theoretical framework and wide-ranging empirical analysis of the psychological and cultural mechanisms underlying moral reasoning and decision making, the formation of cultural identity, and the nature of sacred values.